Accelerating our Understanding of Supramolecular Chemistry in Aqueous Solutions: A Workshop Proposal

Water plays a central role in many natural chemical and biological processes as well as industrial and technological applications. A fuller understanding of the chemistry of water and aqueous solutions is expected to have important impacts on a wide range of fields including green chemistry, environmental remediation, atmospheric science, biological sciences, biomedical research, and pharmaceutical development. To help build up our knowledge of aqueous solutions, Dr. Bruce Gibb of Tulane University, Dr. Paul Cremer of Pennsylvania State University, Dr. Amar Flood of Indiana University, and Dr. David Mobley of the University of California, Irvine co-organize a workshop entitled "Accelerating our Understanding of Supramolecular Chemistry in Aqueous Solutions."

This workshop, to be held on May 31-June 4, 2015 in Virginia, is jointly supported by the Macromolecular, Supramolecular, and Nanochemistry (MSN) Program, the Chemical Theory, Models and Computational Methods (CTMC) Program, and the Chemical Structure, Dynamics and Mechanisms A (CSDM-A) Program of the NSF Division of Chemistry. It brings together physical scientists who study water and aqueous solutions and supramolecular chemists who investigate non-covalent forces and intermolecular interactions. Tutorial presentations and breakout discussion sessions are scheduled to facilitate a rapid exchange of knowledge and experiences between the two groups of scientists, the generation of new ideas and perspectives, and the formation of new collaborative efforts. The long-term goal of the workshop is to further understand the chemistry of aqueous solutions through bridging the knowledge gap between bulk-scale phenomena and the chemical events occurring at the molecular/supramolecular level.